Establishing the Chronologic and Climatic Correlates of LateHolocene Cultural Development in Northwest and Northern Alaska

The purpose of this proposal is to establish a framework needed to model Holocene archaeological sites in Arctic Alaska in relation to global and regional climate patterns. Subfossil wood from archaeological sites, living trees and driftwood collected in the Kobuk River area in northwestern will be used to extend tree-ring data back to 1000-2000 BP. This dendrochronological data can be used to reconstruct past climate patterns and date archaeological sites. The results of this project will significantly expand the understanding of the chronology of cultural development and human adaptation in the western Arctic, and contribute to an understanding of global climate change.